A High Temperature Mechanical Testing System for Carbon and Ceramic Matrix Composites

Partial funding will support purchase of a high temperature mechanical test system with 1600 C capability and computer control. The equipment will support research on the effects of microstructure and processing variables on the mechanical properties of carbon-carbon composites, ceramic matrix composites, and carbon-based alloys.